NSF FF: Planning: Co-Designing a Community AI LitKit to Build College- and Workforce-ready Communities.

This FINDERS Foundry award supports the creation of an AI Literacy Community Kit (AI LitKit) that helps students, families, and teachers learn about artificial intelligence in ways that connect to local needs. The team collaborates with a high school to design tools that make AI easier to understand and use. The AI LitKit offers a hands on education kit with simple lessons for students and parents about AI basics, AI risks and benefits, college and career planning, and how communities can use AI to solve problems. Second, it will include a mobile app that gives extra practice, helps students explore college and career paths, and connects families with mentors in STEM fields. By the end of the planning phase, the team will build and test an early prototype with the community and create a plan for future development and evaluation.

This FINDERS Foundry award integrates community centered design, evidence based AI literacy frameworks, and technology enabled learning supports into an AI Literacy Community Kit (AI LitKit) to address persistent barriers to AI understanding and STEM pathways. Working in partnership with a large public school system, the project will co design educational, material, and technological components aligned with local priorities and community needs. The AI LitKit will include a modular instructional kit covering foundational AI concepts, risk benefit analyses, rights and responsible use, AI enabled college readiness, workforce applications, and community empowerment. A companion mobile application will extend these resources by providing an AI practice sandbox, adaptive learning supports, college and career readiness tools, and community networking features that connect learners, families, and STEM mentors. Together, these components create a hybrid physical digital learning ecosystem that supports accessible and responsive AI literacy development.